Equipment to Quantify Undergraduate Course Work and In- dependent Studies in Animal Behavior.

This project is expanding and strengthening undergraduate offerings in animal behavior and behavioral ecology through the purchase of equipment that makes it possible to quantify aspects of what has been largely a descriptive field. It facilitates expansion of the range of techniques introduced and used in the laboratory exercises of the Animal Behavior course, and increases the diversity and sophistication of independent study and/or senior thesis projects available to students interested in these areas. The students use the event recorders to document sequences and temporal patterning of behavior. Tape recorders, a sonagraph and a sonogram digitizer are allowing students to record and analyze vacalization in detail -- critical elements in understanding territoriality, breeding behavior and other aspects of animal interaction. A motion analyzer makes possible detailed examination of locomotion, stimulus-response sequences, and related phenomena.